PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Leonardo E Abbrescia is "Shock Formation in 3D Relativistic and Classical Fluids with non-trivial Vorticity and Entropy." The host institution for the fellowship is Vanderbilt University, and the sponsoring scientist is Jared Speck.